Workshop on Transduction in Biological Systems: Santiago, Chile, May 23-27, 1988

This award supports a workshop on Transduction in Biological Systems to be held in Chile hosted by ten Chilean participants from the University of Chile, Centro de Estudios Cientificos de Santiago (C.E.C.S.), where the workshop will be held, and the Catholic University. The Chilean co-organizers are J. Bacigalupo, C. Hidalgo, E. Jaimovich and C. Vergara. The workshop will bring together people from several countries working on intracellular messengers, coupling in skeletal muscle and gland cells, visual, olfactory and auditory systems. The Chilean biophysicists represent an area of research strength and have produced excellent students, some now in the U.S. so the interactions should be considerable and of benefit to both sides. Three other Latin American countries: Argentina, Mexico and Venezuela will be represented as well as the U.K. and France. Experts from all the fields to be covered in the workshop will attend from the U.S. so personal connections will be made or reinforced, information will be freely exchanged and opportunities for future collaborations will be explored.